Oklahoma Teacher Education Collaborative: Phase II Evaluation Follow-on

The Oklahoma Teacher Education Collaborative (O-TEC) has developed a systemic approach to the recruitment, training, and retention of science and mathematics teachers in Oklahoma. In this follow-on project, a long term summative evaluation is being conducted that is 1) documenting the effectiveness of the original grant activities, and 2) contributing to the CORE evaluation project that is serving all projects funded in the NSF Collaboratives for Excellence in Teacher Preparation Program. The evaluation is guided by the CORE research questions and use instruments and protocols developed by that project. As triangulation, the evaluation is employing several tests and measures specific to Oklahoma students that have been part of previous evaluations and are closely associated with educational advancement and curriculum reform. Four higher education institutions will sevre as evaluation sites to facilitate data collection.